Undergraduate Faculty Enhancement in Elementary Preservice Mathematics Education for Two Year Colleges

Faculty at the University of Southern Mississippi will conduct a series of workshops with mathematics faculty from two-year colleges who teach pre-service teachers. Coordination between faculty at two- and four-year institutions is critical, as an increasing number of students in pre-service teacher preparation programs at the university level transfer from two-year schools. The workshops will provide access to experiences with current approaches to mathematics content and pedagogical activities called for by the NCTM Standards. This project will provide participants with the material and support necessary to successfully incorporate the workshop topics into their present curricula, and to develop the capability of all participants to serve as leaders in their home institutions. Furthermore, participants will share their approaches to incorporating project topics into the curricula through publications and presentations at professional meetings.